Modern IR and UV/VIS Spectrophotometry in the Undergraduate Chemistry Curriculum

Infrared (IR) and ultraviolet-visible (UV/VIS) spectroscopy are crucial methods for the current understanding of chemical structure and reaction mechanisms. The use of two such spectrophotometers, recently acquired by the Chemistry Department at Siena College, is providing students with knowledge of the theoretical basis of these methods and experience with state-of-the-art techniques for data retrieval and analysis. Together with a data station which is shared by the two instruments, and selected software, the laboratory sections of all of the upper level chemistry courses are impacted by the use of this integrated system. These courses include Organic Chemistry, Physical Chemistry, Instrumental Methods, Synthesis and Characterization, and Independent Research.